Improvement of Chemistry Teaching in Central Iowa Through the Use of Integrated Microcomputer Learning Activities

This Leadership Activities project will provide enhancement and professional development experiences in the use of the computer as an instructional tool for 25 chemistry teachers in central Iowa. The goals of the project are to upgrade the knowledge of basic and applied chemistry of the teachers, to assist them in effectively utilizing the microcomputer in teaching chemistry, and in developing 25 microcomputer lessons which augment their existing chemistry curricula. These 25 teachers will subsequently provide in-service activities to other chemistry teachers in their geographic area utilizing the skills and knowledge attained. The network of 25 chemistry teachers currently exists. They have been actively involved in the planning for this project. The group will meet for six Saturday sessions during the 1986-87 academic year and for two weeks during the summer of 1987. The teachers will be supported by a science educator, a college computing specialist, a research chemist, and a 1984 Presidential Awardee in Science (Chemistry). Follow-up visits will be made by the staff to the teachers in their schools. The activities in which teachers are engaged will range from lectures and laboratories to interactions with computers. Active participation is assured, and there will be frequent referencing of activities to the high school chemistry curriculum.